Acquisition of a Low Vacuum Scanning Electron Microscope

Funds are being requested for the acquisition of a low vacuum scanning electron microscope (SEM) with a digital image storage and output capability. The model proposed for purchase, a JEOL JSM-5410LV, can achieve a resolution of 4 nm in the high vacuum mode and 5.5 nm in the low vacuum mode. Accelerating voltages range from 0.5 to 30 kV and magnifications can be as high as 200,000X or as low as 15X. Specimen chamber pressures vary from 270 Pa (2 Torr) to 7 X 10-4 Pa (5 X 10-6 Torr) in the low and high vacuum modes, respectively. A SEM with these specifications has many advantages for botanical research, but the main asset is that plant tissues can be observed directly without the need for chemical fixation, dehydration or metal coating in the low vacuum mode. This will not only represent a savings in preparation time, but also will provide more accurate representations of delicate specimens to be observed and in some cases will obviate the need to alter or actually destroy specimens that are unique in character, e.g., paleobotanical material. Furthermore, digital images of specimens can be stored electronically and added as TIFF files to databased botanical specimen records. The high vacuum mode also can be used to provide high resolution imaging comparable to currently-marketed, conventional SEM's that employ a tungsten electron source. The SEM is an indispensable instrument for systematic and morphologic plant research. The New York Botanical Garden (NYBG) requests funds to purchase a new SEM to replace the currently used 10-year-old instrument, which is nearing the end of its useful life. The SEM is used at the NYBG to investigate pollen grains, spores and various plant tissues such as epidermises, vascular elements and floral components. Such investigations provide micromorphological data that are essential to the research of the Garden's staff and graduate students. The instrument also will be used for the identification of varying plant samples as a key compo nent of paleoethnobotanical investigations and for the purpose of supplying essential information to the public and certain government agencies. The proposal includes detailed descriptions of research activities and identification services performed at the NYBG using the SEM. Results from Prior NSF Support: D. L. Lentz has not received an NSF grant within the last five years.